Automatic Control of Interface Boundaries in Vertical FreezeProduction Processes

A key consideration in a variety of manufacturing processes is controlling either the position or shape of an interface defined as the boundary between liquid and solid materials of dissimilar composition or density to within certain allowable tolerances. Examples of such diverse processes are vertical freeze Bridgman and Czochralski crystal growth Electroslag remelting for metal refinement. A technique based on gamma ray transmission is ideal to provide information regarding interface position and curvature. However, existing methods that provide positional information are not suitable for application towards industrial automation. A method to monitor and subsequently control and interface boundary using an appropriate gamma ray emitting radioisotope and a rugged semiconductor detector will be developed. The detector will be either a modified version of an existing device or a new unit, developed in-house, with superior detection performance capabilities. Research will focus on the development of gamma ray transport models and algorithms that will determine what the ideal component properties needed to fulfill specific requirements in terms of position resolution, detection efficiency and a timely presentation of the measured gamma ray intensity. Experiments will be performed to demonstrate measurement capabilities such as sensitivity to small changes in either interface curvature or density.